Cycles, characters and global geometry

Abstract

Award: DMS-0404766
Principal Investigator: H. Blaine Lawson, Jr.

This project is concerned with the study of cycles, residues,
boundaries and differential characters. The proposal has several
interrelated parts. The first concerns the groups of algebraic
cycles and cocycles on a projective variety $X$. The aim is to
relate these groups to the global structure of $X$. The
investigator has, with others, established a theory of homology
type for algebraic varieties based on the homotopy groups of
cycles spaces. This theory will be used to study concrete
questions about algebraic spaces. Implications for real
algebraic geometry will be explored. Striking onnections to
universal constructions in topology which emerged in prior
research will also be investigated. A second part of the proposal
concerns cycles which bound complex subvarieties in a projective
manifold. Several new conjectures relate these cycles to
approximation theory, pluripotential theory, and the projective
spectrum of Banach graded algebras. A third area of the proposal
concerns the study of singularities and characteristic
forms. This subject includes a generalization of Chern-Weil
theory which gives canonical homologies between singularities of
bundle maps and characteristic forms. It includes a useful
analytic tool -- geometric atomicity -- which will be studied,
and it yields a new approach to Morse Theory. Applications
relating singularities to global geometry remain to be
investigated. The forth part of the proposal concerns sparks and
spark complexes. This recently developed framework for the study
of differential characters has yielded interesting
generalizations which extend Deligne cohomology and arithmetic
Chow groups. They are essentially secondary invariants which
mediate between cycles and smooth data. Further development of
the theory and its application to the study of cycles is
proposed. A fifth area is concerned with special cycles in
geometry, in particular Special Lagrangian cycles in Calabi-Yau
manifolds, and associative and Cayley cycles in $G_2$ and
Spin$_7$ spaces. These latter subjects relate to mirror symmetry
conjectures and to M-theory in Physics as well as many areas of
geometry and algebra. This project will also be concerned with
student development, including an undergraduate educational
effort aimed at fostering mathematical independence and
developing interactive enviornments.

A concept of central importance in geometry is that of a
``cycle''. In algebraic geometry a cycle corresponds to the
simultaneous solution of a system of polynomial equations. In
differential geometry they arise in many ways: as the large scale
solutions of certain differential equations, and as the level
sets and singularity sets of differentiable mappings. Curves and
surfaces in space are simple examples. Cycles with a particular
geometry also play a fundamental role in modern physical theories

This proposal is concerned with the study of cycles across this
broad spectrum. In the algebraic setting cycles have been related
to fundamental large-scale geometry of their surrounding
space. This discovery has revealed surprizing and important
relationships between spaces of algebraic cycles and fundamental
constructions in algebraic topology and has led to new insights
in both fields. This work will be continued.

Another area of investigation concerns cycles which form the
boundary of subsets with special geometric structure. They
represent non-linear versions of classical boundary value
problems in analysis. Such questions arise in many contexts.
Recently the proposer has formulated conjectures relating certain
important classes of such cycles to questions in approximation
theory and Banach algebras. Successful resolution should produce
significant new insights in several fields of mathematics.

A third area of study concerns a mathematical apparatus developed
by the proposer to detect subtle relationships between cycles and
the global structure of the space they live in. This apparatus
encompasses some of the most effective tools historically
developed for this purpose, and it is much more general. Further
development of this theory and its applications will be persued.

A fourth domain of investigation is concerned with special cycles
in geometry: Special Lagrangian cycles in Calabi-Yau manifolds,
and associative and Cayley cycles in G(2) and Spin(7) spaces.
These latter subjects relate to gauge field theory and gravity in
Physics

This project will also be concerned with graduate student
development. Students will be part of the research team. There
will also be an undergraduate educational effort aimed at
fostering mathematical independence and developing interactive
environments.